Differential Structures

Abstract

Proposal: DMS-9802646
Principal Investigator: Eugenio Calabi

Eugenio Calabi proposes to continue his research on variational
problems and partial differential equations arising from various
aspects of the geometry of manifolds. Herman Gluck proposes to
continue his research on spectral geometries for the writhing of knots
and the helicity of vector fields, on embedding and knotting of
positive curvature surfaces in 3-space, and on the existence and
uniqueness of volume-minimizing cycles in Grassmann manifolds. Julius
Shaneson plans to apply higher dimensional Euler-MacLaurin formulae
with remainder to some problems in number theory related to counting
of lattice points, and to continue his research on singular spaces,
characteristic classes, and related classification problems.
Wolfgang Ziller proposes to continue his research on positively curved
cohomogeneity-one manifolds, minimal isometric immersions into
spheres, weakly symmetric spaces, and primitive subgroups of Lie
groups.

One aspect of Calabi's work is an application to computerized image
enhancing by a method that does not interfere with the optical
distortion due to the projection into a photographic plate. One
aspect of Gluck's work applies to the writhing and coiling of DNA and
to the writhing of magnetic field lines in the Crab Nebula. Shaneson
plans to use Euler-MacLaurin formulae with remainder to study the
numer of lattice points in curved regions of the plane and
higher-dimensional spaces, with a view towards progress on some basic
questions in number theory and also some practical applications to
problems involving complex networks. Ziller plans to continue, in
joint work with Karsten Grove of the University of Maryland, the study
of cohomogeneity-one metrics with positive or nonnegative sectional
curvature; finding new examples with this property is important for
geometry and also very difficult, as one can see by the fact that new
ones are discovered only about every 15 years.